Bilateral NSF-SERC Conference on Molecular Recognition, Leicester, England, Fall, 1989

This award from the Office of Special Projects of the Division of Chemistry enables the participation of twelve younger U.S. chemists in the Bilateral NSF-SERC Conference on Molecular Recognition which is being held in Leicester, England, on October 20-24, 1989. This conference, which is being convened at the recommendation of the NSF Chemistry Advisory Committee, brings together some twenty-five young American and British scientists who are likely to be the future leaders in this field. Molecular recognition involves the study of weak intermolecular forces and the role that they play in the formation of complexes or assemblies between two or more chemical entities. The complexity and specificity of biochemical processes depends critically on the controlled and effective use of non-covalent interactions in the binding and recognition processes between biomolecules. This leads to the remarkable properties of biological systems such as enzymes, DNA, antibodies, and membranes. The primary aim of this Bilateral NSF-SERC Conference on Molecular Recognition is to expose young scientists to the wider community of international scholarship and to build the foundation for long term international collaborations.